Mathematical Sciences: Group Actions, Scalar Curvature and Surgery-Theoretic Problems

The investigator intends to study questions involving the symmetry properties of manifolds and the existence of riemannian metrics with weak curvature properties on manifolds. The symmetry investigations will include questions about low- dimensional manifolds and the applications of surgery theory and homotopy theory to problems involving higher-dimensional manifolds; much of the latter will involve symmetries whose singular sets have relatively large dimension and comparing the possible classifications of such actions with cases where the singular set dimension is relatively small. All these problems will be studied by a combination of methods from algebraic and geometric topology, with input from stable and unstable homotopy theory, the theory of surgery on manifolds, topological and differentiable transformation groups, and low-dimensional topological methods, including gauge theory. The objective of the work is an improved understanding of some questions about the existence of positively curved metrics and the existence and classification of certain symmetries; these questions have generally arisen in connection with recent advances in geometric topology. Manifolds are ubiquitons in mathematics, arising naturally as the solutions of systems of equations in higher dimensional spaces. As to low-dimensional manifolds, we live in one, three-dimensional or four-dimensional, depending on whether the time dimension is considered as well as the three space dimensions. More information about symmetries of manifolds, their curvature, and other properties is thus bound to be useful. //